CAREER: Closing the Loop: Exploring the contextual factors that support successful approaches to integrate engineering education research and practice

For decades, a major challenge in the field of engineering education has been closing the gap between research on effective educational practices and the educational practices engineering instructors actually use. This need has become more acute in recent years, as engineering faculty need strong support systems to gain the skills they need to prepare students for an AI-forward workforce. Fortunately, a handful of engineering education centers (EECs) have deployed faculty development approaches that take major strides in closing this research-and-practice feedback loop. Each EEC’s approach to faculty development is different, and each has found success at its home institution. Through this project, I will study six of these EECs to understand what about their institutional contexts has allowed their faculty development approaches to be successful in closing the research-and-practice feedback loop. I will develop the novel Model for the Context-Rich Integration of Scholarship and Practice (CRISP Model), a visual model that maps different kinds of faculty development approaches and outcomes to the institutional factors that support them. The CRISP Model will empower other EECs in the United States to develop programs that better support engineering faculty to close the research-and-practice loop. I will pilot the model’s use through yearlong, collaborative program development and deployment projects with two such EECs. The CRISP Model will form the foundation of my long-term career, where I aim to create a world in which every EEC in the U.S. has dedicated infrastructure to facilitate the integration of educational research and practice across engineering disciplines. The integrated nature of the project’s research and education plan, coupled with its connection to my career goals, aligns the project strongly with the purpose of the CAREER program.

My research plan will use a qualitative multiple case study methodology to study six EECs with dedicated programs to support the integration of research and practice. I have already formed partnerships with all six EECs. I will visit each EEC to observe its programs and to interview center leadership and program participants to understand the EEC’s institutional context and how it contributes to the EEC’s success. I honed this case study methodology through my dissertation work as an NSF Graduate Research Fellow and through recent pilot work. The study is grounded in an appropriate theoretical framework (“Four Frames”) that identifies important categories of contextual factors to study. My education plan collaborates with EECs to create lasting and sustainable changes at their institutions. Following an application process, I will work with two EECs to co-design programs tailored to their institutional contexts, using the CRISP Model as a guide. Each EEC will receive a subaward to fund the development and implementation of its programs, and the project’s evaluation plan will collect data that EEC leaders can use to negotiate continued program funding with their institution’s leadership. This education plan will use a propagation-oriented approach and will take advantage of both my research plan findings and my experience as an EEC leader. In terms of intellectual merit, my research plan will develop the CRISP Model using well-established methods in which I have extensive experience, and the education plan will allow me to evaluate the model’s efficacy in real-world applications. In terms of broader impacts, the CRISP Model will establish infrastructure by empowering EECs to develop programs that support the integration of educational research and practice in a way that aligns with their institutional contexts. My education plan will improve STEM education by deploying the CRISP Model to develop new programs, potentially impacting thousands of engineering students through improvements to engineering education practice.